Mathematical Sciences: Administration of Travel Grant Program for the 1990 International Congress of Mathematicians; Kyoto, Japan, August, l990

This project will support a travel grant program for the 1990 International Congress of Mathematicians to be held in August 1990 in Kyoto, Japan. The Congress, which is held every four years, is a meeting of mathematicians from all over the world. The American Mathematical Society will administer the program, which will culminate in the selection of a group of mathematicians from the United States who will receive awards providing partial support for their travel to this meeting.